Rigidity Phenomena in Geometry and Dynamics

ABSTRACT DMS - 0203735.

The research proposed lies at the interface of dynamical systems and differential
geometry. Its principal goal is the investigation of the dynamical and geometric
structures of "higher rank" systems. Such systems naturally appear both in dynamical
systems and geometry. In particular, the principal investigator will study
rigidity properties of actions of higher rank abelian and semisimple Lie groups
and their lattices with the ultimate goal of classifying such systems under
suitable geometric or dynamical hypotheses. In particular, he will study higher
rank hyperbolic abelian actions, and actions by semisimple groups and their
lattices preserving affine and geometric structures. He will also investigate
invariant measures of algebraic higher rank abelian actions. The investigator
will also investigate Riemannian manifolds (especially higher rank ones)
and their geodesic flows. Geometric, dynamical and group theoretic
tools will be used in this research.

Dynamical systems and ergodic theory are relatively new fields that investigate
the evolution of a physical or mathematical system over time (e.g. turbulence in
a fluid flow). New ideas and concepts from dynamics (e.g. chaos, fractals) have
changed our perception of the world fundamentally. Dynamics and ergodic theory
provide the mathematical tools and analysis for these investigations. Dynamical
systems have had a major impact on the sciences and engineering. Symbolic
dynamics for instance has been instrumental in developing efficient and safe
codes for computer science. Tools and ideas from smooth dynamics are used as
far afield as cell biology and meteorology. Geometry is one of the oldest fields
in mathematics, and generally studies curves, surfaces and their higher
dimensional analogues, their shapes, shortest paths, and maps between such
spaces. Differential geometry had its roots in cartography, and is now studied
for its close ties with physics and other sciences and applied areas (computer
vision e.g.)as well as internal aesthetic reasons. Geometry and dynamics are
closely related as some important dynamical systems originate from geometry, and
geometry also provides tools to study dynamical systems. One main goal of this
project studies when two dynamical systems commute, i.e. when one system is
unaffected by the changes brought on by the other. Important examples of such
systems arise from geometry.